St. Louis Inner Ring Cooperative: Intervention Case Studies in K-12 Math & Science

The project is proposed by a partnership that includes Washington University, St. Louis, five near-urban school districts in St. Louis (Ferguson-Florissant, Maplewood-Richmond Heights, Riverview Gardens, University City and Webster Groves) and two informal science centers, the St. Louis Science Center and the St. Louis Zoo.

The partnership effort is to improve the mathematics and science achievement of preK-12 students beginning with a particular focus on grades 4-8. The school districts are responsible for the education of approximately 29,000 students and the project will impact several hundred teachers each year.

A goal is to enhance student achievement, and this is accomplished by: improving capacity to provide a challenging math and science curriculum for every student; developing exemplary teacher support from pre-service education through the induction years; improving teacher quality, quantity and diversity using innovative recruitment strategies, and; narrowing the achievement gap between under-represented minority students and Caucasians in math and science.
To achieve these goals, the partnership is designing and implementing a six-part infrastructure for teacher professional development and a materials management and community support system, which is to be sustained for the long-term.